Modeling Stellar Exotica in Dense Star Clusters

AST-0507561
James Lombardi
Vassar College
Modeling Stellar Exotica in Dense Star Clusters
ABSTRACT
A collaborative project between Vassar College and Northwestern University will be undertaken
which will explore the effects of magnetic fields during close interactions between stars as are likely
to take place frequently in dense stellar environments (e.g., the cores of globular clusters). Such
interactions not only determine the fate of these clusters but are also believed to be the origin of
exotic objects such as blue stragglers, binary pulsars, and x-ray sources. The investigators and
students at Vassar will use a 3D smoothed particle hydrodynamics code developed under previous
NSF funding and complete its adaptation to include magnetic fields (a 3D smoothed particle
magnetohydrodynamic code). This new tool will then be used to simulate stellar collisions/mergers
among a variety of types of stars (main-sequence, subgiant, red giant, and stellar remnants).
Specific topics that will be addressed include stellar collisions in globular clusters (and the origins
of blue stragglers, i.e., collisions versus mergers), binary mergers, and common envelope evolution.
Included in this project is significant involvement by students with the goal of setting up self -sustaining student research programs (in which new students are trained by seniors). There is also
the opportunity for students at either school to become involved in collaborations with
students/postdoctoral fellows/faculty at the other. Likewise, useful skills in programming,
modeling, hydrodynamics/fluid mechanics, etc., will be developed among the participants.